Engineering and Computer Science Scholars Targeted for Academic, Retention and Success (STARS) at the University of South Florida

The USF STARS program is providing 25 scholarships per year to academically talented and financially needy students to increase the retention of STEM transfer students through graduation, with emphasis on students from underrepresented groups, including women, minorities, and students with disabilities. This program offers a viable transfer pathway for students at community colleges (CC) and non-Engineering degree granting (e.g. dual degree) programs into Engineering. Also, this project leverages existing student enhancement programs developed and implemented at USF to improve the recruitment and retention of STEM transfer students through graduation.